Collaberative Research: Ultimate Causation of Insect Drift:An Evaluation of Active and Passive Models

Insects living on or within the substrate of streams "drift" downstream in substantial numbers and with a pronounced nocturnal rhythm. Insect drift is one of the unique properties of running waters and, despite numerous studies, it remains both a challenge and a puzzle to lotic ecologists. Recent developments of concepts and techniques now allow for a concerted attack on the issues of why organisms drift, to what degree drift entry is active vs. passive, and the relative influence of biotic vs. abiotic causes. This research is directed toward the goal of understanding insect drift within the context of foraging events and risk of predation. Nocturnality has been satisfactorily explained by the risk of predation hypothesis. Two explanations exist for why drift occurs: as the passive and accidental consequence of nocturnal foraging activity, or as an active and purposeful process of habitat search/dispersal, related to resource depletion. While the passive model is widely accepted, evidence from recent work documents weaknesses in the passive mechanism and a significant role for an active mechanism. This research uses a combination of field sampling and laboratory and field experiments to address five objectives that test multiple hypotheses concerning the mechanism(s) underlying drift behavior. Their completion should lead to an improved understanding of the relative contributions of active and passive explanations of downstream drift, which remains one of the major, unresolved issues in river ecology.